NSF Young Investigator

Dr. Polvani is an NSF Young Investigator whose research will span a wide range of topics. He will investigate the dynamics of the Earth's atmosphere and ocean, as well as other planetary atmospheres, emphasizing nonlinear wave and vortex phenomena. He will also carry out an ambitious teaching program focused on applied mathematics, fluid dynamics, and atmospheric and ocean sciences.